IUTAM Symposium On Inelastic Deformation of Composite Materials

This award provides partial support for an IUTAM Symposium on Inelastic Deformation of Composite Materials to be held at Rensselaer Polytechnic Institute in May 1990. A number of topics will be discussed in which leaders in composites have been invited and agreed to participate.